Fabrication of Flexible High Temperature Ceramic Supercon- ducting Thin Films by Chemical Vapor Deposition

This project will use chemical vapor deposition (CVD) to deposit YBa2Cu3Ox coatings onto commercially available ceramic and/or metallic fiber tows (bundles of fibers). This proposal will emphasize on the development of the coating process and coating characterization. A CVD furnace and commercially available reactants will be used to deposit the YBa2Cu3Ox coatings in a batch process. Electrical, magnetic, chemical, structural, and mechanical characterization will be performed on the coated tows.